Comparative Grammar of the Sahaptian Languages

ABSTRACT This project will produce a comparative grammar of the Sahaptian languages. It will cover sound changes, comparative phonology, morphology, syntax, and discourse. A Sahaptian morpheme dictionary will be included, listing all proposed Nez Perce and Sahaptin derivatives (with every suggestion from the literature duly noted). This contribution, in addition to previous descriptive work on Nez Perce and Sahaptin, will make Sahaptian one of the best understood American Indian language families. It will provide data for further comparison within Penutian, as well as make a contribution with theoretical appeal in the area of general historical and comparative linguistics.